Development of New Techniques for Meiotic Research (Genetics): VPW

The project aims to transfer techniques for mitotic labeling of DNA sequences for light and electron microscopy to both meiotic chromosomes and nuclei. "Labeling" will include replication labeling with BrdU of zygotene DNA (zygDNA) semi- conservative replication and pachytene (PDNA) repair synthesis. In situ hybridization of L1 and B2 sequences which hybridize to G- and R-bands, respectively, offer an opportunity to "band" pachytene chromosomes so that they can be individually identified and the relative involvement of R- and G-chromatic in synapsis and recombination can be directly studied. The research will significantly increase the resolution of meiotic studies, provide powerful new tools for study of 3-D arrangement of chromatic within presynaptic nucleic to provide an understanding of how homologous chromosomes "find" one another. In addition, it will allow study of the role of specific DNA sequences in initiation and progression of synapsis and recombination while determining where these sequences are located with respect to R- and G-bands of mammalian chromosomes. The project focuses upon gene making and chromosome structure. It furthers VPW program objectives to provide opportunities for women to advance their careers in science or engineering through research, and to encourage other women to pursue careers in these areas through the investigators' enhanced visibility as role models on the host campuses. In this project, the proposed activities which contribute to the second objective will include: developing and coordinating a series of guest lectures by women in genetics, jointly sponsored by the Department of Human Genetics and the Office for Women in Medicine, Yale University School of Medicine, with time allocated for female graduate students to meet with the lecturers and discuss careers in science; teaching a graduate course on Meiosis and on Chromosomes, Speciation, and Evolution; and participating in the departmental Journal Club presentations by faculty, and the Recombination Journal Club, as well as other departmental activities, including the yearly departmental retreat for students and faculty.